International Conference on "Turbulent Heat Transfer"

ABSTRACT CTS-9523525 Ronald So The proposal is to partially support a conference on Turbulent Heat Transfer in March, 1996 in San Diego. The conference centers on the investigation of the coupling between momentum and energy transfer in turbulent flows, in situations of practical interest. The conference will bring together experimentalists, modelers, and numerical analysts to discuss various aspects of turbulent convective heat transfer.